Physics Research Experiences for Undergraduates: REU Site Award

This action is for the continuation of a successful program that involves undergraduates from a number of institutions in significant and timely research activities.